Oxidation of Phenolic Pollutants by Iron and Manganese Oxides in Subsurface Environments

Research with objectives of obtaining a better understanding than now exists of mechanisms by which phenolic compounds are chemically oxidized by manganese and iron oxides in aqueous solutions will be performed. Results of this research are likely to be applicable to engineering design of systems to manage the quality of groundwater that has been subjected to pollution from phenolic compounds.